NSF Young Investigator

9357383 Daly It is necessary to understand the physical processes occurring in distant galaxies and clusters of galaxies to constrain or determine the cosmological that describes our universe. The plethora of new data on high redshift galaxies and clusters of galaxies will be used to determine the physical properties of these systems. The masses, ages, and evolutionary stages of the systems will be estimated. The results of the studies will be used to explore the use of these systems to constrain or determine the cosmological world model applicable to our universe.